National High Magnetic Field Laboratory (NHMFL)

The National Science Foundation and the State of Florida are providing funds to a consortium, consisting of Florida State University, The University of Florida, and Los Alamos National Laboratory, to establish a new National High Magnetic Field Laboratory. The Florida/Los Alamos National Magnet Laboratory (FLNML) will be located at Florida State University, Tallahassee and at Los Alamos National Laboratory. FLNML will be a major user facility open to all qualified scientists and engineers. FLNML will develop a number of advanced high field magnets including a hybrid DC magnet with a design field capability of at least 45T, a bore with a diameter of at last 32mm, and a 20MW low-ripple power supply, state-of-the-art superconducting magnets for NMR in fields greater than 25T, intense pulsed field facilities capable of producing fields in excess of 75T for time durations of msecs, and pulsed fields of 200T for microsec durations, and a variety of water-cooled magnets capable of the production of fields up to 25T. In addition, FLNML will have available a comprehensive range of instrumentation to carry out experiments requiring these fields. These magnets will be housed in the Tallahassee facility, except for the pulsed field magnets which will be located at Los Alamos. The laboratory will also have a diverse in-house research and educational program involving faculty, post doctorals, and students from several disciplines including physics, chemistry, materials science, engineering, and biology. Examples of research to be carried out at the laboratory include high magnetic field studies of high temperature superconductors and high resolution NMR studies of the structure of complex biological molecules.